Boundary Element Methods for Solution of Inverse Heat Conduction Problems Useful in Developing Infrared Computerized Axial Tomography

The infrared computerized-axial-tomography scan (IR-CAT scan) can be used in nondestructive testing to identify the presence and shape of cavities internal to a body. The new methodologies to be developed during the course of the proposed work will enable irregularly shaped cavities to be identified within irregularly shaped bodies. With these new methodologies, IR-CAT scan can be employed in new applications such as the optimum design of structure configurations. The basic idea is to overspecify the thermal information at one of the bounding surfaces of a solid and to use the excess information as input to a numerical procedure which makes use of a temperature-field solution technique called the boundary element method.